Computer Simulation of Plasmas at UCLA (Physics)

This program has pioneered the use of computer modeling for investigating the physics of plasmas. The program is based on the philosophy of using computer simulation as a general tool to gain fundamental understanding of plasmas, to explore phenomena which are difficult or impossible to investigate in other ways, and to study interesting and potentially useful plasma behavior. A two year program is proposed to pursue studies of basic plasma physics, to investigate properties of plasma lenses and accelerators, to investigate the use of plasmas as radiation sources, to study dynamic Debye clouds in magnetized plasmas, to investigate lasing mechanisms which may have been operative in the early universe, and to develop diagnostic tools for plasma research.